Electrochemical CO2 Separation for Ammonia Plants

9360805 Cook This is a Phase I award under the Small Business Innovation Research Solicitation. An electrochemical "pump" for removal of carbon dioxide from process streams is the objective. The approach uses a carrier molecule that binds carbon dioxide in its reduced form and releases it when the carrier is oxidized. Thus, carbon dioxide is captured at the cathode and released at the anode; by placing the two electrodes in different external environments, carbon dioxide can be moved from the cathode (e.g. in a process stream) to the anode (e.g. in a gas compressor input). The proposal is directed toward improving the efficiency of ammonia production, but the carbon-dioxide pump has a large number of potential applications, some of them very innovative.